CCLI Phase 2: Increasing Attractiveness of Computing: The Design and Evaluation of Introductory Computing Coursework that Elicits Creativity

Computer Science (31)

The University of Texas at El Paso and Texas A&M Corpus Christi in consultation
with Georgia Tech, are investigating the impact of an existing
programming-centric computer literacy course that has attracted women into
computing. This research effort is investigating how the successful approach
of this course can be applied to Hispanics enrolled at Hispanic serving
institutions. This effort is increasing the understanding of how curriculum
design can affect the attractiveness of technical careers. Data for
longitudinal studies to evaluate how participation in this course correlates
with future success in technology-related careers is being collected. In
collaboration with career planning experts, the pedagogical techniques
underlying this course are being adapted to students from diverse disciplines.
This project is improving computing literacy among non-computing majors and the
results are being deployed and evaluated at six of the eight members of the
Computing Alliance for Hispanic-Serving Institutions.